Simulation and Analysis of Mobile-IP Protocol

9529145 Sidhu Telenix Corporation - "Simulation and Analysis of Mobile-IP Protocol" This award supports a one year project to conduct simulations of mobile-IP and present the results through the Internet Engineering Task Force to designers of mobile-IP software. The purpose is to provide data to assist in understanding the mobile-IP environment to guide implementations now in preparation. It is aimed primarily at IPv4, though the results will be useful for IPv6 as well.